ITR/IM: Handling Uncertainty in Spatial Databases

The goal of this research project is to develop new techniques to handle uncertainty in object-oriented dynamic databases. The approach consists of developing a new data model and associated algebra; developing query optimization techniques for inexact queries; and development of indexing methods to support probabilistic uncertainty in dynamic databases. This research effort develops new theory, tools and technology to support various types of probabilistic uncertainty in object-oriented dynamic databases. The experimental research is linked to spatial databases with applications in the field of Geographic Information Systems. By adding support for uncertainty in database management systems, this research project will substantially increase the power and flexibility of database management in a broad class of business, social, scientific and engineering endeavors where uncertainty is measured and used.
http://www.vislab.ucr.edu/intro.html